Adjoint Mantle Circulation Models

Bunge

9980457

The PI proposes to perform a series of numerical benchmarks to test the 3D
spherical TERRA mantle convection code. Velocity and temperature values
and the Nusselt number will be calculated from the series of benchmark
problems specified in 1993 by U. Christensen (European Benchmark). The
calculations will be compared to results obtained from other models. The
outcome of this work will be a quantitative benchmark of the TERRA code.
He also proposes to evaluate the potential of the adjoint fluid dynamic
method in mantle convection models. He will use the adjoint method to
estimate unknown initial conditions in idealized mantle convection models.
Estimates of the unknown initial conditions of mantle convection simulations
will be obtained through a series of coupled forward-in-time and adjoint
backward-in-time integrations. The outcome of this work will be to explore
the utility and accuracy of the adjoint method in retrieving unknown initial
conditions in mantle convection models.